U.S.-France Cooperative Research: In-Situ Analysis of the C4 and CAM PEPC-Kinase Signal-Transduction Chains in Isolated Mesophyll Protoplasts

9512795 Chollet This three-year award supports U.S.-France cooperative research in plant biochemistry and physiology between Raymond Chollet at the University of Nebraska and Jean Vidal at the Plant Biotechnology Institute of the University of Paris, Orsay campus. The investigators propose to continue their collaborative studies on signaling pathways for the regulation of C4 photosynthesis. They propose to investigate the role of a key enzyme - phosphoenolpyruvate carboxylase (PEPC) in the protoplasts of C4 and Crassulacean-acid-metabolisim (CAM) plants. The French investigator provides expertise in cell biology while the U.S. investigator provides expertise in protein kinases.